The New Mexico Math Reform Project

Mathematical Sciences (21)

This project creates new educational material for the instructor that uses a formulation of math reform that is textbook and curriculum independent. The goal is to prepare students for the 21st century technological workplace by creating a potent and attractive integrated learning environment in mathematics by stressing the descriptive, numerical, graphical, and symbolic delivery of mathematical concepts. This project researches, tests, refines, and disseminates a formulation of mathematics reform that is textbook and curriculum independent. The project focuses on exponential and logarithmic functions, materials that are found in both a precalculus and a calculus course. The developed resource materials allow dissemination of reform to occur naturally, which can help alleviate the departmental calculus textbook debates.